Annual Telluride Workshop on Neuromorphic Engineering

The Telluride Workshops arose from a strategic decision by the NSF to
encourage the interface between Neuroscience and Engineering. The
recommendation was for NSF to organize and fund a hands-on workshop to draw
together an international group of scientists interested in exploring
neuromorphic engineering. This new field seeks to design and fabricate
artificial neural systems, such as vision systems, head-eye systems,
auditory systems and autonomous robots, whose architecture and design
principles are based on those of biological nervous systems.

The three-week long Telluride Workshops, have been held annually since then
(cf. the Telluride homepage at http://www.ini.unizh.ch/telluride2000/). The
workshop includes background lectures, practical tutorials on analog VLSI
design, hands-on projects, and special interest groups. There are two daily
tutorials covering general material. Participants are free to explore topics
of their own choosing in the afternoon; while projects and interest groups
meet in the late afternoons, and after dinner.

About 60 people are invited to the workshop. Participants are from academia,
government laboratories, and industry. Backgrounds span physics, robotics,
computer science, neurophysiology, electrical engineering, and computational
neuroscience. The workshop provides background material in cellular and
systems neuroscience, all aspects of analog VLSI design, simulation, layout,
and testing as well as sensorimotor integration and active vision systems.
Working groups are established in a variety of areas such as robotics and
Central Pattern Generators, sensorimotor interactions, inter-chip
communications, active vision, audition, and spatial localization using
vision and audition together, attention and selection, locomotion and
industrial applications.